Catalytic Combustion of Waste Halogenated Solvents

A novel catalyst preparational method is adapted to a catalyst for oxidation of halogens in dilute air streams. This procedure produces highly active oxidation/reduction catalyst from an available set; the primary reaction will be established; and a preliminary reaction model will be produced which reflects primary mechanistic steps involved. Preliminary design evaluations will be made to define improvements needed in Phase II, and a novel electrical heating scheme of the conducting catalyst will be examined. Electron microprobe and electron microscope studies will be made through cooperative efforts at the University of Massachusetts. From surveys of environmental remediation companies, there is a strong need for air strippers combined with catalytic combustors of halogenated solvents, in order to remediate contaminated aqueous systems. If successful, the combustor can be applied economically to many small sources, improving employment outlook, and reducing RCRA cost burdens.